HCC: Designing Tools to Improve Qualitative Research through Collaborations with Humans and Artificial Intelligence

Qualitative analysis is the process of identifying concepts in non-numerical data such as interviews, transcripts, video, and naturalistic observations. Many researchers from academia and industry depend on qualitative analysis as a core method, but analyzing data by hand can often be difficult, time-consuming, and unreliable. With the advent of generative AI, researchers are increasingly turning to machine intelligence to support their work. However, there are many open questions about how to design tools that will improve rigor, transparency, and efficiency without sacrificing quality. For example, generative AI models can hallucinate about factors not in the data, make mistakes in a lopsided way, or mislead researchers into narrower directions.

This proposal will address these challenges by designing collaborative human+AI tools to support qualitative research. We will first, conduct an in-depth study of how researchers currently engage in qualitative methods, both with and without AI. Next, we will develop innovative approaches to assist researchers through a human+AI collaboration. Finally, we will collaborate with researchers to create intuitive interfaces that make it easy to work with these tools.